Computer and Information Science and Engineering Research Instrumentation

A 64-node hypercube multiprocessor will be provided for researchers at the Michigan State University for research in the departments of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of Parallel Processing, Computer Vision, Pattern Recognition, Concurrent symbolic simulation of digital systems and Database processing.